Student Travel Grant for Student Participation in 2002 Summer Research Conference

This award provides funds to support the participation of graduate students in a summer research conference organized by the Southern Regional Council on Statistics (SRCOS) and the American Statistical Association. The conference will be held on June 2-5, 2002, in Natchez, Mississippi. The objectives of the conference are to bring together senior researchers, junior researchers and advanced graduate students to focus on several current research areas in statistics and to discuss some current and future issues in statistical education and training. Sessions are organized around the topics of Statistical Education and Biostatistics, Statistics for Dependent Data and Environmental Statistics. Leading researchers will present new developments in an environment that is conducive to the development of new human resources.